RI: Medium: Collaborative Research: Minimalist Mapping and Monitoring

Proposal Title: RI: Medium Collaborative Research: Minimalist Mapping and
Monitoring
Institution: University of Illinois at Urbana-Champaign
Abstract Date: 05/05/09
"This award is funded under the American Recovery and Reinvestment Act of 2009
(Public Law 111-5)."
This project addresses fundamental and challenging questions that are common to
robotic systems that build their own maps and solve monitoring tasks. In particular, the
work contributes to our general understanding of the interplay between sensing, control,
and computation as people attempt to design systems that minimize costs and
maximize robustness.
Powerful new abstractions, planning algorithms, and control laws that accomplish basic
mapping and monitoring operations are being developed in this effort. This is expected
to lead to improved technologies in numerous settings where mapping and monotoring
are basic components.
Ample motivation is provided by technological challenges that involve searching,
tracking, and monitoring the behavior of people, wildlife, and robots. Examples include
search-and-rescue, security sweeps, mapping abandoned mines, scientific study of
endangered species, assisted living, ground-based military operations, and even
analysis of shopping habits.
The work is particularly transformative because it lives outside of the traditional
boundaries of algorithms, computational geometry, sensor networks, control theory, and
robotics. Furthermore, national interest continues to grow in the direction of developing
distributed robotic systems that combine sensing, actuation, and computation. By
helping to break down traditional academic and scientific barriers, it is expected that the
work will transform the way we think about robotics algorithms, the engineering design
process, and the education of students across the robotics, computational geometry,
and control disciplines.
NATIONAL SCIENCE FOUNDATION
Proposal Abstract
Proposal:0905523 PI Name:LaValle, Steven
Printed from eJacket: 05/06/09 Page 1 of 1